The Development of Sex Differences and Similarities in Behavior Conference on July 13-18, 1992, in Toulouse France.

Understanding the development of gender differences is very important to understanding human behavior. This award is being given for partial travel support of established researchers and young investigators at the student or postdoctoral level to attend an international meeting on the development of sex differences and similarites in behavior. The meeting involves an variety of scientists from different fields and will give them unique opportunities for interactions with each other across diverse research areas. The information gathered in this conference will contribute to understanding the role of gender differences in behavior at all levels, which includes personal, social, educational and workplace interactions in humans.